Research in Gravitation Theory and Astrophysics

This research is primarily concerned with the investigation of astrophysical situations in which strong gravitational fields play an interesting role. The oscillations and stability of rapidly rotating neutron stars will be investigated. Of primary interest here are the secular instabilities that are moderated by the dissipative effects of viscosity and gravitational-radiation reaction. Investigations will also be made into the problem of formulating a relativistic theory of dissipative fluids. The causality of the overall theory and the structure and stability of the equilibrium states are of fundamental interest. The attempts to understand completely the symmetries of equilibrium stellar models in general relativity theory will continue (e.g., "Are all static stars spherical?"). Finally, the effects of superfluidity on the oscillations and stability of rotating neutron stars will be evaluated. The influence of the complicated dynamics of a charge superfluid mixture on the macroscopic oscillations and the damping of these oscillation by viscous effects are of particular interest.